Some Recursion Theoretic Problems

9971137
Harrington
This project deals with the structure of recursively enumerable
sets under inclusion, with emphasis on invariant sets and
automorphisms, and on definable sets with their corresponding finite
back-and-forth games. There is a natural interplay between the
non-existence of certain types of automorphisms and the existence of
certain types of invariant sets. This project will attempt to address
some of the combinatorial difficulties inherent in extending the
current techniques for automorphisms to finite back-and-forth
arguments. This might help convert the invariant/automorphism
technology into a definable/non-definable technology, thus producing
possibly interesting definable sets.
A recursively enumerable set is a set whose members gain entry
because a corresponding computation comes to a halt; thus the
recursively enumerable sets are examples of a phenomenon described
over time (at any given time one knows only the finite set of members
whose computation has already halted) but whose actual nature is
timeless (a potential member is either in or out---the computation
either eventually halts or it never halts). So the recursively
enumerable sets provide an arena for studying the interplay between
the appearances in time of some thing and the timeless nature of that
same thing. The method used here is to presume, despite appearances,
that two things are actually `the same' in the sense that they can be
identified via a symmetry (automorphism). This either turns out to be
the case, or the failure of the attempt to produce the desired
symmetry may (and often does) result in a timeless describable property
separating the two things and explaining why they are truly different.
This project also plans to use the above as an exemplar towards
understanding the pre-Socratic philosophers.
***